ISR International Harmonization of Composite Material Standards

9321240 Martin The objective of the project is to harmonize six ASTM composite material standards with those developed by the International Organization for Standardization. (IOS) The data is critically needed for composite materials in order to have the United States industry improve the engineering design of advanced composites and to be competitive in the world market. ***